Functional, Stochastic and Geometric New Advancements of the Mumford-Shah Model

Shen
DMS-0604510

The investigator develops extensions to the Mumford-Shah
model to deal with certain problems in image analysis for which
the model is not entirely satisfactory. Despite its successful
use in a variety of important areas including computer vision,
image processing, biomedical imaging, cognitive perception,
computational neural science, and general data mining with
clustering and categorization, the classical Mumford-Shah model
has gradually revealed its insufficiency in modeling and
computing more general classes of image and visual signals. The
approach here is to advance the Mumford-Shah model in three
distinct directions of stochastic, functional, and geometric
modeling and analysis. The new models can effectively and
faithfully analyze and compute more complex signal patterns that
demand innate randomness, oscillations, or high-order geometric
regularities and are beyond the scope of the original
Mumford-Shah model. The main mathematical tools essential for
the project involve stochastic analysis, functional analysis,
differential geometry, nonlinear partial differential equations,
non-convex optimizations, and scientific computing.

A fundamental problem common in many nationally important
areas involving vision and images is to determine whether some
specific pattern of interest is present, be it an enemy's
disguised tank, a long knife in a passenger's carry-on, or a
tumor block in a brain scan. Behind the split-second decision by
human intelligence is an ensemble of sophisticated (but often
subconscious) and clever decision rules, balance principles, and
information blocks. To reveal and emulate such remarkable human
intelligence in object identification and extraction is the major
goal of the segmentation problem, and it has never been more
urgent than in today's information age when massive sets of
image/visual data are encountered everywhere. Automation,
accuracy, genericity, adaptivity, and speed are key qualities
that have been driving all the research efforts in the past few
decades. Based on the classic method of Mumford-Shah, by
incorporating several modern mathematical tools the investigator
develops newer models that are more faithful in detecting real
complex patterns, more broadly applicable and flexible, and
computationally more efficient and tractable. The project helps
train graduate students in these crucial areas. Results are
valuable for scientific, engineering, medical, and industrial
applications where pattern classification and data analysis
methods are widely used.